Network Access Point Manager for the NSFNET and NREN Program

ABSTRACT Bellcore PI: David Sincoskie NCR - 9320762 This award supports the creation, operation and management of a Network Access Point (NAP) and provision of related NAP services in the Chicago, IL and California area as called for by Program Solicitation NSF 93-52. This is one of three for such NAP services (at 4 locations) to be funded as a result of that solicitation.